Static Strength of Prestressed Composite Steel Girders

Highway bridges in the U.S. are fast approaching their design life of 50 years. As a result, they are in need of repair, strengthening, or replacement within a short period of time. This project will investigate the static strength of upgraded composite steel girders that are prestressed with a construction sequence identical to that used in field applications. Currently there is no experimental data available in the literature. The research will study load-deflection characteristics, ductility, redundancy, and reliability of prestressed steel girders under static loads using bonded and unbonded tendons applied in a straight and draped profile. The results will be of great benefit to bridge engineers.